Mathematical Sciences: NSF Young Investigator

This research, supported by a National Science Foundation Young Investigator award, involves the study of mixture models, including the development of graphical diagnostics and formal tests for identifying the presence of mixing in generalized linear models, determining the numbers of components in finite mixture models, and the development of methods to incorporate the full information available in case-control studies with errors in variables. The National Science Foundation Young Investigator award recognizes outstanding young faculty. This award recognizes the recipient's strong potential for continued professional growth as a research mathematician and for significant development as a teacher and academic leader.